Reconstructions on Clean and Absorbate Covered Surfaces

Certain surfaces have a two-dimensional periodicity that differs from that expected from a straight forward continuation from the bulk, a phenomena known as reconstruction. In some cases, a reconstruction can be induced by the addition of controlled amounts of adatoms. Questions about why and how such rearrangements occur represent fundamentally inportant topics in surface science. In addition, the possibility to induce such effects has the potential of providing a source for new materials with novel and possibly very useful properties. A study of geometric structure of such reconstructed surfaces using medium energy ion scattering with channeling and blocking, a powerful, novel, high resolution technique for surface studies will be employed. These studies are to be complemented with studies of the electronic structure using angle resolved photoemission with synchrotron radiation and with inverse photoemission. Among the systems to be studied are the reconstructions that occur on the (110) surfaces of gold and platinum and the adsorbate induced reconstructions that occur on similar surfaces. This research will ultimately lead to new ways of changing the location of atoms on surfaces and thus produce synthetic surfaces with useful properties.